Program for Learning and Research in Science for Middle School Teachers

This proposal seeks support to enhance the scientific skills of 72 middle school teachers in Northern Florida and Southern Georgia. The project is for three years and is designed to help the middle school teachers improve their knowledge and understanding of science. The project also aims to decrease the isolation of these teachers by increasing the communication between and among teachers and a university- based team. These needs will be met through the following set of interrelated activities: (a) Course work in science content and curriculum and instruction; (b) Activities including seminar series on: the use of computers for research, communication and instruction; issues in science education, such as special needs of minority and female students, and current topics in science; and leadership training; (c) Research in both science and science education; (d) Short and extended site visits; and (e) Communication including electronic mail, and meetings during the academic year. Teachers participating in the project have the opportunity to complete the program in three years and will have met the requirements for a Masters' Degree in Science Education. Cost sharing is equivalent to 30% of the NSF award.